Electronic Structure and Properties of Bulk Solids and Surfaces

Theoretical studies will be performed with new theoretical/computational capabilities which have been developed for investigating the electronic structure and properties of complex solids and surfaces within local density functional theory. Our total energy full potential linearized augmented plane wave (FLAPW) approach for thin films and bulk solids will be applied to (i) the study of the structural, electronic and magnetic properties of transition metal and rare-earth metal surfaces and (ii) the determination of the electronic structure and properties of the high temperature superconductors. These latter results will be used as a starting point for developing a quantitative theory of excitonic superconductivity. The studies in (i) and (ii) will be undertaken in collaboration with (and support of) the research efforts being carried out by a number of experimental groups. In addition, they propose to employ the formal properties of a Hamiltonian with periodic potential which they have recently obtained to develop a practical computational method (based on a reformulation of the variable phase method in terms of the Coulomb functions) to be used in band calculations for bulk solids and to treat impurities, surface and phonons.